Theoretical Studies of Heme Proteins

The proposed studies involve the theoretical characterization of the relationship between structure, spectra, and function of heme proteins- focusing on peroxidases, a family of metabolizing heme enzymes that catalyzes the oxidation of a variety of substrates by hydrogen peroxide. Specifically, a variety of techniques of computational chemistry will be used to continue to address three major themes: (1) elucidation of the common steps and key intermediates in the enzymatic cycle of all peroxidases, leading from the resting state to the biologically active species. Although the bioactive species formed is common to all peroxidases, it is subsequently involved in two different types of oxidations. These differences will be probed by: characterization of substrate/enzyme interactions using lignin peroxidase (LiP), an isozyme typical of the family of peroxidases that oxidizes surface- bound substrates by long range electron transfer and by characterization of substrate/enzyme interactions using horse radish peroxidase (HRP), an isozyme belonging to the second type of peroxidase that oxidizes substrates near the heme unit by chemical transformations. Since no X-ray crystal structure has been reported for any member of this family, a 3D model of this enzyme will be created by completing the homology modeling of HRP begun during the current grant period. %%% Peroxidases are ubiquitous in many living species including bacteria, fungae, plants, and mammals. They are involved in transforming and eliminating potentially toxic species as well as of potential use in biodegradation. Understanding the underlying mechanisms of their two types of oxidations will lead to the identification of the stereoelectronic properties that modulate the efficacy of substrates that undergo long range electron transfer as well as those that are chemically transformed. Moreover, key residues of the enzymes that are involved in both of these types of catalytic oxidation will be identified and mutations suggested that will increase enzyme efficacy. These combined results can then be used to guide in protein engineering of optimum mutant enzymes for use in biodegradation of specific products as well as in enhancing the understanding of the role that peroxidases play in regulating toxicity.